EAGER-Nanoparticle-binding peptide tags for multiplexed immunosensing

This is an EAGER proposal submitted to OISE for research collaboration between Prof. Blake of Tulane University and Prof. Merkoçi’s of Nanobioelectronics and Biosensors Group in the Catalan Institute of Nanotechnology at the Autonomous University of Barcelona, Spain.
The objective of this one-year project is to develop new peptide tags for quantum dots of specific metal ion compositions. These peptide tags, when incorporated into engineered antibodies, will permit the development of integrated, miniaturized electrochemical sensors that can be multiplexed with minimal sample pretreatment. Such electrochemical sensors, which will ultimately be miniaturized for rapid, on-site analysis, would have the capacity for rapid, simultaneous detection of multiple environmental contaminants, serum biomarkers, or analytes of concern for homeland security.